Collaborative Research: Inter-Annual to Century-Scale Climate Records from the Tropical Atlantic: Coral Based Reconstructions

Summary: This ESH project will collect and analyze coral specimens from the Cape Verde and Gulf of Guinea, using stable isotopes and trace element geochemistry, to determine the climatic variaions in this region over the past 200 years.